Mathematical Problems in Nonlinear Conservation Laws and Related Applications

The investigator studies mathematical problems involving
shock waves in nonlinear conservation laws and related applications,
along with the analysis and development of efficient new nonlinear
techniques. Shock waves often occur in solutions of nonlinear
conservation laws of hyperbolic type, mixed elliptic-hyperbolic type,
and mixed parabolic-hyperbolic type. The proposed work is in three
interrelated topics corresponding to the nonlinear conservation laws
of three types:
(1) multidimensional transonic shocks, free boundary problems, and
related nonlinear problems;
(2) divergence-measure fields for entropy solutions with shocks to
hyperbolic conservation laws;
(3) solutions with shocks to anisotropic degenerate
diffusion-convection equations and related nonlinear problems.
In each, both nonlinear problems involving shock waves and new
mathematical techniques are proposed. The unifying mathematical theme
of the three topics is shock wave problems and related nonlinear
techniques. The objective of this proposed program is twofold:
(1) investigate important nonlinear problems involving shock
waves to gain new physical insights, to guide the formulation of
efficient nonlinear techniques, and to find the correct mathematical
frameworks in which to pose the nonlinear conservation laws and
develop the numerical methods that converge stably and rapidly;
(2) analyze and develop nonlinear techniques including free boundary
methods, kinetic methods, compensated regularity methods, and related
potential techniques to formulate new, more efficient nonlinear
techniques and to solve various more important nonlinear problems
in conservation laws and related applications.

The mathematical problems in this research program arise in such
areas as gas dynamics, hydraulics, elasticity, multiphase flow,
combustion, magnetohydrodynamics, semiconductor, phase transitions,
kinetic theory, biophysics, sedimentation-consolidation processes,
material science, and image processing.
The award will support research on the solvability of these
mathematical problems involving shock waves in nonlinear conservation
laws and related applications, the qualitative behavior of their
solutions, as well as the analysis and development of nonlinear
methods in applied analysis and numerical analysis.
This research will lead to a deeper understanding of nonlinear
phenomena, especially for shock waves, and will provide more
efficient nonlinear methods and theories for applications.
Given the richness and the range of applications for which
shock waves are involved in nature, this project will have
a broad impact by understanding the behavior of shock waves and
developing methodology and a set of nonlinear techniques
for their further study.